REU Site: Mathematical Sciences Research Institute Undergraduate Program (MSRI-UP)

MSRI-UP is a Research Experience for Undergraduates program that identifies talented undergraduates who display great mathematical potential despite having had limited opportunities and experience. MSRI-UP provides students with the research experience, training, long-term mentorship, and social support necessary to pursue a graduate degree and career in the mathematical sciences. The MSRI-UP is led by a team of directors who have substantial experience creating a rigorous and supportive research environment that emphasizes collaboration and communication and encourages the active participation and success of every student. This guarantees a high-quality research experience that leads to presentations at national conferences and frequently to publications in refereed journals.

MSRI-UP contributes significantly to increasing the number of graduate degrees in mathematics earned by U.S. students. The program, partnership with the Mathematical Sciences Research Institute in Berkeley, California, includes a six-week summer research experience, colloquia and professional development workshops, the opportunity to present at national conferences, an introduction to a wide community of peers and mentors, and long-term follow-up and mentorship. Each year, the mathematical activities are directed by a different research leader who is an expert in an active area of research and an established mentor, to ensure that MSRI-UP will contribute to the different fields of mathematics.